CRI: Instrumentation of a Hierarchical Wireless Sensor Network Test-bed for Research and Education

Abstract
Proposal: CNS 0454170
PI: Bin Wang
Institution: Wright State University
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Instrumentation of a Hierarchical Wireless Sensor Network Test-bed for Research and Education

Project:
The PI's will acquire a two tier, hierarchical sensor network based on motes. The testbed will have a core network, core access network, and sensor field. The core network is the wireless LAN already in existence; the core access network will consist of several network service access points emulated by laptop computers, and the sensor nodes will be constructed from motes, sensor boards and network interface boards. Research supported will include development, analysis and deployment of sensor network protocols and applications. The PI's will study whether a proposed hierarchical architecture improves connectivity, energy conservation, and reliability; they will evaluate security protocols; they will design new security mechanisms and resilience schemes in defense of faults and attacks; and develop region-based event monitoring applications. The infrastructure will support education at Wright State University by use in undergraduate capstone courses and graduate level independent research.